Structure Dynamics and Phase Transitions of Suspensions of Charged Polymer Spheres in Equilibrium and Non-Equilibrium States

Suspensions of charge-stabilized polymer spheres are exploited to study the basic equilibrium and non-equilibrium properties of systems of strongly interacting spherical particles. Such systems are uniquely suited for testing classical statistical physics.